SBIR Phase I: Low-cost, High-Efficiency Power Amplifiers for Magnetic-Resonance Imaging

This Small Business Innovation Research (SBIR) Phase I project will investigate techniques for low-cost, high-efficiency, wide-bandwidth power amplifiers for magnetic-resonance-imaging (MRI) systems. To date, MRI transmitters have been based upon broadband linear power amplifiers, which are inefficient and consequently large, heavy, and expensive. Further, there is a growing demand for systems operating at higher frequencies with larger bandwidths. Existing high efficiency transmitters are relatively expensive and have limited bandwidths. The approach in Phase I is based upon high-level amplitude modulation, low cost RF power transistors, digital signal processing, and electronic tuning.

The principal potential commercial application is MRI. Other applications include radio frequency communications, high frequency radar, radio frequency heating (plasmas, semiconductors), and laser drivers.